Knots in Vancouver

The purpose of the workshop is to bring together
the leaders of the fields of knot theory and 3-manifold topology to
discuss the state of the art of the subjects (currently in a state of
rapid change). A second purpose is to introduce young mathematicians,
graduate students and postdoctoral fellows to the subjects. The workshop
will begin with minicourses followed by individual lectures on the later
days.
The mathematical theory of knots is currently a very active area of
mathematics. Knot theory has found application in molecular biology, for
example in testing models of the action of certain recombination enzymes
on DNA. The study of knotted orbits gives a powerful tool in the theory
of 3-dimensional dynamics. Knot theory is connected intimately with
questions such as "what is the shape of our universe?" Our space, which
appears 3-dimensional and flat (or 4-dimensional with time) may be curved
in on itself and form what is known as a closed 3-manifold. The deep
connection between the theory of 3-manifolds (and 4-manifolds) with knot
theory is the special focus of this workshop. It is timely, as many
long-standing problems in the subjects have recently been solved, giving
rise (of course) to new and deeper problems.